Vision 21 Workshop Logistics; April 27-29, 1998; Crystal City, VA

9812546
Kurstedt
The National Science Foundation (NSF) plans to organize a series of workshops called "Vision 21: Environmental Electric Energy Opportunities for the Next Century", on the future technologies to support the Nation's electrical supply, delivery and consumption for the 21st century. Following are the proposed themes and objectives:

1. Anticipate and explore the science, technology and security needs for the restructured electric supply systems of the next century.

2. Educate technologists about the coming trends in emerging generation, storage and delivery systems, control and communication systems needs, energy efficiency, load matching, advanced power delivery and conversion concepts, etc.

3. Identify the impact of the US electric power industry on global climate change.

4. Discuss and contrast several diverging expert views of the electric utility of the future
And search for common technical and policy themes and directions.

5. Provide suggestions for academic researchers regarding valuable energy technology investigation areas.

The first workshop in this series is scheduled for 27-29 April 1998 in Crystal City, VA and will focus on distributed resources and communication system needs as listed below. This will present the prospects for leading energy technologies, provide a lasting vision of our energy future and give the attendees a window to the needs and opportunities in the next century. Major topics will include:

Renewable Energy
Advanced Microturbines
Fuel Cells
Storage and Energy Efficiency
Communication System Needs
Data Monitoring Needs
Power Quality Issues
Environmental Impacts
***